STTR PHASE I: Ferroelectric Liquid Crystal (FLC) Gels for Facile Processing and High Yield Manufacture of Hardened FLC Displays

This Small Business Technology Transfer Phase I research project will enable the widespread use of Ferro-electric Liquid Crystal (FLC) electro-optic devices which is currently impossible because their high fabrication costs become prohibitive for displays over a few centimeters in size. New FLC materials are needed to construct well-aligned FLC cells and consequently larger and less expensive devices. This research will develop polymer dopants that expedite processing and increase yield of well-aligned FLC cells by designing and synthesizing block copolymers that dissolve in the isotropic phase of the Liquid Crystal (LC) and self-assemble into a network when the LC cools. It will characterize the physical properties of these FLC gels to show they retain fast electro-optic (EO) responses and test the new FLC gels for improved durability and manufacturability.

Approximately 2 billion small flat panel displays are used annually in cell phones, PDAs, iPods, etc. The additives developed would allow FLCs to be processed into displays in this size range, providing a step-change in resolution and speed. Scientifically, LC gels and elastomers have proven to be a fascinating class of materials and theory is just beginning to offer tantalizing predictions of phenomena that may be found when experimentalists begin to explore FLC gels. This project will be at the cutting edge of experimental research in FLC gels, providing the first glimpse into the consequences of orientational coupling and rubber elasticity in chiral smectic LCs.